RUI: Robust Multivariable Control System Design Using H- infinity Optimization

The aim of this proposal is the development of a computer-aided-design methodoloy for the linear multivariable control problem based on an approach called H-infinity optimization. H-infinity optimization is an approach to control system design which takes into account plant uncertainities and rather general classes of reference and disturbance inputs. The goal of this research is to resolve certain conceptual and computational difficulties which must be overcome before the H-infinity approach becomes a practically useful design methodology.